UT Chemical Engineering Summer Workshop

9553515 LeBlanc This proposal seeks support for a three week residential, Young Scholars project in chemical engineering for 40 students entering grades eleven and twelve. The workshop will be located at the University of Toledo and has been designed to introduce high school students to career opportunities available to them in engineering. The workshop will involve a variety of experiences including laboratory experimentation, hands-on computer instruction, independent group investigations and field trips. Follow-up activities planned for the academic year include conducting planned engineering experiments in the participants' home schools.